1995 Molecular Genetics of Phage Conference, Cold Spring Harbor, NY August 22-27, 1995

9507079 Grodzicker The meeting on the Molecular Genetics of Bacteria and Phage is a central forum for the presentation of new results in the general area of prokaryotic molecular biology and genetics. Some 300 participants, representing more than 200 laboratories (both in the United States and abroad) attend; the vast majority present either short talks or posters. It is an important venue for the cross fertilization of the discipline; it is also, for many graduate students and postdoctoral fellow, the firs large meeting at which they have an opportunity to speak. The abstracts cover a wide range and include fundamental work on transcription, recombination, DNA synthesis, translation, pathogenesis, and other areas. Although the specific subjects are wide ranging, the commonality of approaches means that new conceptual and technical advances rapidly become disseminated through the attending laboratories. The 1995 meeting is special in that it includes a session dealing with the E. coli genome project. This will be the perfect venue for a summary report of the genome sequencing projects and analyses of how the sequence information can be used in genome structure/function studies. More importantly, this meeting will provide an ideal opportunity to stimulate the use of this information by the relevant scientific community. The meeting will also include a session in which some of the scientist who founded the field of molecular biology will discuss the intellectual roots of the field in the context of the then available technology. %%% The field of biotechnology is founded on research with bacteria and their viruses. The Cold Spring Harbor Laboratory has been the principal location where the latest information on bacterial genetics is disseminated. This meeting will provide a summary of where the field has come from as well as the latest progress in microbial genetics. ***